An In Situ Flow Cytometer For The Optical Analysis Of Individual Particles In Seawater

9416551 Olson The Woods Hole Oceanographic Institution will undertake a project to develop an instrument to analyze the optical properties (light scattering and fluorescence) of individual microscopic particles in situ and unattended, using established techniques of flow cytometry. The long-term goal is to develop an automated, moored (eventually profiling) monitor for the optical characteristics of phytoplankton and other microscopic particles in the euphotic zone of the ocean. The instrument will have resolution and sampling rates comparable to a laboratory flow cytometer, but will be simple and small enough to be operated unattended for months at sea, with on board processing/storage of data. Developments allowing this instrument to now be practicalinclude low-power- consumption solid state lasers providing enough power to allow fluorescence measurements of single phytoplankton cells, and artificial neural network systems to cope with the large amounts of data from multiparameter analyses of individual particles. To increase reliability, it is proposed to use a simple ducted flow to replace the mechanically complex hydrodynamic sample stream focusing of conventional flow cytometers. To use this simple flow system will require the ability to recognize and reject signals from particles passing through the edges of the excitation spot. This can be achieved by use of excitation optics that produce a unique signal shape for particles passing through the optimum region. Such an instrument will allow oceanographers to obtain both the high resolution data necessary for understanding such basic features of natural communities as diet patterns in phyto- plankton cell growth and division and zooplankton grazing, and the extended sampling necessary for resolving important but infrequent events in the ocean.